Teaching Abstract Qualitative Reasoning in Physics: A Computer-Based High School Curriculum on Electricity

This project is developing and testing computer materials for teaching abstract qualitative reasoning in physics. The computer activities will cover the first part of the electricity curriculum. The project emphasis will be on testing early in the development cycle. Revisions will be based on demonstrated effectiveness, and on the response of students and classroom teachers. The modules will deal with electric charges, forces, and interactions; the interaction of charges with matter; and electric fields. The product will 8-10 activities each requiring about 1/2 hour of student time. The project staff are endeavoring to develop programs which sufficient robust and complete so as to be easily used by students with little or no computer knowledge.